Collaborative Research: Understanding Protein Mechanical Stability and its Impact on Secretion

Many bacteria use a nanosyringe on their surface to inject proteins into host cells to facilitate infection.
These injected proteins, called effectors, are normally folded into specific three-dimensional structures
required to carry out their functions. However, they need to be mechanically unfolded by the syringe
machinery to be secreted through the needle and into the host where they refold to their normal structure.
To facilitate their secretion, effector proteins are easy to unfold mechanically—they are mechanically
labile—whereas proteins that are mechanically robust cannot be secreted. However, what makes proteins
mechanically labile or robust is poorly understood. This project addresses this knowledge gap. A carefully
chosen set of model proteins and state of the art experimental and computational tools will be used to
elucidate what makes a protein secretable by bacterial nanosyringes. This will define a fundamental
bacterial infection mechanism and may also allow future engineering of the system to inject proteins of
interest into host cells. More generally, the project will advance the field by helping define the rules for
protein mechanical stability. The combination of biophysical and computational approaches provides an
outstanding cross-training opportunity for graduate and undergraduate students in the physical and
biological sciences.

How protein mechanical stability is encoded—how unfolding by mechanical force is modulated by
sequence and structure—is poorly understood. This project addresses this knowledge gap by examining
proteins secreted by the bacterial Type III Secretion System (TTSS), called effectors, as model systems.
The TTSS mechanically unfolds and secretes its effectors while other proteins stall in the secretion
apparatus. The PI’s team discovered that TTSS effectors are mechanically labile compared to their noneffector
homologs. In this project, they explore the hypothesis that effectors have evolved to be
mechanically labile, so they can be unfolded by a weak TTSS unfoldase, explaining their extreme sequence
divergence from their non-effector homologs. The system provides a naturally occurring model to
understand how mechanical stability is modulated by sequence. The collaborative approach combines: (i)
a high-precision single molecule assay to determine mechanical properties of TTSS effectors and their noneffector
homologs; (ii) steered molecular dynamics simulations to provide a theoretical model of the
mechanisms of differential mechanical stability within a conserved fold; and (iii) live-cell imaging to test
the effect of different mechanical stabilities in TTSS secretion. This provides a comprehensive, quantitative,
and physiologically validated model for how mechanical stability is encoded and it impact on TTSS
secretion.

This research is funded by the Molecular Biophysics program in the Division of Molecular and Cellular Biosciences in the Directorate of Biological Sciences.